Upgrade of a 500 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Brigham Young University will upgrade a 500 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) the development of new glycosidase inhibitors; b) natural product and stereoselective synthesis; c) development of metal ion-selective macrocyclic chelators; d) elucidation of photochemical mechanisms and synthesis using photochemistry;e) preparation of pH responsive cavitands based on metal-calixarene interactions; f) structural elucidation of biologically active components of traditional medicines; g) development of novel nucleotides for antisense gene therapy; h) preparation of antiviral agents and elucidation of mechanisms of nucleoside processing enzymes; and i) development of permeabilizers of the outer membranes of Gram-negative bacteria.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including fundamental medicinal chemistry.